SBP: 2012 Science and Technology Policy Gordon Research Seminar

The Gordon Research Seminar on Science & Technology Policy is a unique forum for graduate students, post-docs, and other scientists with comparable levels of experience and education to present and exchange new data and cutting edge ideas. Junior scholars and practitioners in economics, science and engineering, science and technology policy, and science and technology studies will present their work. This year's GRS-STP is the first ever, organized by graduate students to accompany the successful series of Gordon Conferences on Science and Technology Policy; its theme is "The International Context of Science and Technology Policy". It will take place on the two days preceding the main GRC in Waterville, NH.

The GRS is designed to strengthen the community of science and technology policy scholars, which it accomplishes in several ways. First, junior scholars in the several disciplinary areas of STS, economics, and science and technology policy have a chance to see what each of these perspectives has to offer the others and to make professional contacts that can help reinforce those connections as they develop professionally. Second, several senior figures in the field play mentor roles, including two economists and two policy scholars. The seminar includes a career panel of recent graduates who have gone into science and technology policy research or practice. Finally, this seminar represents a significantly higher level of diversity and inclusion than most Gordon Conferences, including multiple organizers and speakers who are African American and Latino and women, who are still under-represented in science and technology policy as a field. The organizers have reached out actively to HBCU campuses to maximize the participation of underrepresented groups and to build research capacity in the areas of science, technology, and society; economics; and the science of science and innovation policy.